RUI: Copper-binding Properties of Microbial Exopolymers in Rivers Sediments

This is a recommendation for support of research on the mechanisms by which polysaccharides produced during microbial growth bind copper to sediments in a flowing stream of water. Results of this research may be applicable to understanding how other metals in trace concentrations are removed from water polluted by their presence. Results are also expected to define more clearly the role of bacteria and their associated exopolymers in sediment processes, particularly those involving the retention and mobilization of metals. This is a renewal of work initiated under NSF 8521693 results of which have led to the isolation of reactive polymers from sediments in a natural stream and selection of the most efficient process for identification of the uronic acid content of the microbial exopolymers found in river sediments as a step toward their complete characterization. Elucidation of the metal- binding characteristics of microbial polymers in natural aquatic systems may eventually lead to their application in the recovery of metals from abandoned mineral processing wastes and industrial process wastewaters. This project has objectives consistent with those of the Environmental Engineering Program with special relevance to the element dealing with diffusion, dispersion and pollutant interactions under the influence of physical, chemical and biological processes in the environment. The proposal leading to this recommendation is also consistent with objectives outlined in NSF 83-59, "Research in Undergraduate Institutions". The investigator's qualifications are appropriate for the work to be done. Award is recommended as a Standard Grant in the amount of $230,244 for 24 months starting on July 1, 1987.